Engineeing Research Equipment Grant: Construction of a Low-Temperature Flow Facility

Funds are provided to support the construction of a new Low-Temperature Flow Facility (LTFF) at the Iowa Institute of Hydraulic Research. This facility will be part of a laboratory complex devoted to ice and cold-region engineering research. The LTFF will contain a test room for determining strength and physical properties (e.g. crystal structure) of ice under the various conditions such as frazil ice growth, generation of ice covers, formation of ice jams, and deformation behavior of ice rubble.